Fatigue Crack Growth at Toughened Polymer Adhesive Interfaces with Impenetrable and Penetrable Phases

9703667 Ritter The objective of this research is to understand the mechanisms involved in slow crack growth at polymer adhesive interfaces that have been tailored to promote adhesion. The research involves both impenetrable and penetrable interfaces. An example of an impenetrable interfaces is silane coupled epoxy/glass and of a penetrable interface is PS/PMMA. Slow crack growth is measured under both constant and cyclic loading using the Double Cantilever Drilled Compression (DCDC) test. Although this test has been used to study crack growth in monolithic glass and ceramic materials, the use of the test to study crack growth at polymer adhesive interfaces is new. The unique advantages of this test is that crack growth is stable and the interfacial fracture toughness can greatly exceed the fracture toughness of the adjoining materials because of the stabilizing role of the compressive loads. Finite element modeling is used to estimate the energy associated with plastic and viscoelastic deformation while the energy associated with chain disentanglement, pullout, and scission is estimated based on micromechanical modeling. Direct measurement of the intrinsic adhesive energy is by the Johnson, Kendall, and Roberts technique, where the contact radius between a sphere (made of polymer adhesive) and a flat plate (made of the bonded material) is measured. %%% Through careful experimentation, micro-mechanical modeling, and finite element analysis, the influence of slow crack growth on the various mechanisms that contribute to the fracture resistance of both impenetrable and penetrable interfaces is explored. This should significantly improve understanding of adhesive bonding. ***